Long-Term, High-Resolution Paleoclimate in the Wrangell Mountain Range in Alaska

Abstract ATM-9709095 Jacoby, Gordon C. Columbia University Title: Long-Term, High Resolution Paleoclimate in the Wrangell Mountain Range in Alaska This award supports a study to develop the high-resolution, multi- proxy paleoclimate potential of the Wrangell Mountain region of Alaska. The region contains proven paleoclimatic resources documenting natural climate variability through much of the late Holocene. The tree-ring and glacial resources make this a promising area where high-resolution, multi-proxy climate histories may be developed. Subfossil spruce preserved in glacial, alluvial and volcanic deposits (much above or near modern tree line) could potentially extend the tree-ring record back through the past three millennia. With both ring-width and density parameters from the trees and sampling dry as well as wet sites, annual and seasonal information will be developed that will be directly comparable to glacial fluctuations. The generation of dendroclimatic data and reconstructions together with high-resolution, tree-ring dating of glacial fluctuations and geomorphic changes will lead to a better characterization of the natural climate variability.